COLLABORATIVE RESEARCH: Deformation, Hydrothermal and Magmatic Processes at the Dike-Gabbro Boundary, Troodos Ophiolite Cyprus: An Insight to Spreading Mechanisms

The dike-gabbro transition zone is a fundamental lithological and rheological boundary zone in the oceanic crust, in which the interaction of magmatic and hydrothermal processes play an important role. Dike-gabbro transitions are preserved in ophiolite complexes, of which one of the best examples is the Troodos Ophiolite in Cyprus. This ophiolite has been well studied petrologically and geochemically, but this study will be the first attempt to systematically map the deformation associated with the dike-gabbro transition. The results will have important implications for the tectonics of ophiolite emplacement and will also have bearing on mid ocean ridge processes.